Algebraic Schemes for Space-Time Modulation in Multiple Transmit Antenna Design

For this interdisciplinary grant in the mathematical sciences, Grant will spend August 2003-July 2004 visiting the Department of Electrical and Computer Engineering at the University of Colorado at
Boulder to collaborate with their research group in digital communications.

The primary goal is to design modulation techniques for systems with multiple transmit antennas. This modulation is also referred to as space-time coding, and requires the production of sets of complex matrices
which achieve maximal spatial diversity (that is, the difference of any of these matrices has maximal rank). The entries of these matrices are constrained to be so-called constellation points for the modulation scheme.

Grant hopes to build upon recent work of those who have used algebraic number theory to build sets of matrices with maximal spatial diversity whose entries are in constellations for BPSK, QPSK, and rectangular QAM modulation schemes, and to apply algebraic number theory to the design of
space-time codes for other constellations.

This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).